SGER: Exploring Late-Holocene Hurricane Activity as Recorded in Salt Ponds and Lagoons of the Caribbean Region

This proposal seeks funds for an exploratory operation to obtain transects of cores from three coastal ponds on St. Croix, U.S. Virgin Islands. These cores will taken with a vibracorer that will allow penetration of sand and coral rubble layers. The cores will then be examined for sedimentological evidence, including coarse layers, of past hurricane strikes on the island, and pertinent layers will be dated by radiocarbon methods. The results will be compared with an independent but complimentary study of geochemical signals of past hurricanes in offshore corals around the island.